Mechanistic Study of the Corrosion of Steel in Concrete

This award will investigate the evolution and mechanism of the corrosion process of steel in salt-contaminated concrete by means of electrochemical techniques such as polarization resistance and electrochemical independence spectroscopy.